Environmental Impacts Analysis Techniques for Secondary Schools

This project will deliver in-service training to 30 junior and senior high school teachers. The project hypothesizes the creation of an environmental center in an environmentally-sensitve wetland along Lake Ontario. The data gleaned from the project will aid in planning programs for a proposed new environmental center. Participants will attend a five-week summer course beginning in July of 1987. During this segment of the program, participants will learn how to evaluate the environmental consequences of the development. Subsequently, a series of five monthly curricular workshops during the following academic year will use the summer experience to create suitable curricular modules for the participating schools. The cycle of a summer course and five curricular workshops will be repeated the following year with a new and different group of teachers. During the summer institute, each school will be asked to recommend student "colleagues" to work with teacher in field collection and identification projects.